Japan Medium-Term Visit: Modeling Forestry Cooperatives

This award will provide partial support for Dr. Norman Elwood of Oregon State University to conduct collaborative research with Dr. Masahiro Amano of the Forestry and Forest Products Research Institute, Tsukuba, Japan. Objectives of the research are to develop a working model of U.S. and Japanese forestry cooperatives and to assess the economic, social, and operational feasibility for forestry cooperatives in the U.S. Dr. Elwood will conduct a comprehensive review of forestry cooperative literature at Japanese university and government libraries, and will interview members, managers, and advisors of Japanese cooperatives including forestry extension programs, forest owners associations, foresters, and government officials who consult with cooperatives. Forest-based industries are important to the economics of both the U.S. and Japan. Although forestry management and marketing cooperatives make vital contributions to the productivity of Japanese forest operations, such cooperatives are less common and, on the average, far less successful in the U.S. Collaboration with researchers at Japan's Forestry and Forest Products Research Institute will enable Dr. Elwood to better understand these organizations and will enable him to include aspects of the Japanese cooperative system into a working model for U.S. forestry cooperatives.